High Performance Network Connections for Science and Engineering Research - HPNC

The proposal plans to connect DePaul to Abilene via the MREN GigaPoP. The connection would allow the School of Computer Science, Telecommunications and Information Systems to fully participate in Internet2 research projects. These projects have specialized needs including access to specialized network facilities, access to high bandwiths, access to collaborators on the high-speed national network.